Hypertext 87: Workshop on Systems, Applications, and Issues (To be held at the Univ of NC-Chapel Hill, Nov 13-15, 1987) (Computer and Information Science)

Hypertext is an approach to information management in which data are stored in a network of nodes connected by links. Nodes can contain text, source code, graphics, audio, video, or other forms of data and are meant to be viewed and manipulated interactively. Hypertext '87, to be held November 12-15, 1987 at Chapel Hill, NC, will be the first large workshop/conference devoted to the sub- ject. Individuals with widely differing backgrounds and experi- ence with hypertext will be encouraged to participate in discus- sions of systems, applications, and issues.